Cambria County Connections to the Internet - Wireless

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect an elementary school to a high school using wireless techniques. The high school is already connected to the Internet over a telephone line.